Geometry and the mapping class group

This project is aimed at studying the geometry of subgroups of the mapping
class group of a surface acting on the Teichmuller space and other related
spaces. The guiding principal is an analogy between this action and the
action of a Kleinian group on hyperbolic space. The primary topics
studied by the PI are convex cocompactness (characterizations and
examples), generalized combination theorems for Veech groups (geometric
structure and ideal boundary behavior), and translation lengths for
pseudo-Anosov mapping classes acting on Teichmuller space (especially its
relation to minimal dilatation questions). Various parts of this work
involve ongoing joint projects with R. Kent, B. Farb, and D. Margalit.

Homeomorphisms of a surface (which can be thought of as self-symmetries of
the surface in a very weak sense) and the mapping class group (which is
the collection of all such self-symmetries) are widely studied in
mathematics. While these objects are primarily of interest in low
dimensional topology and geometric group theory--two fields which have
seen significant growth over the last 20 to 30 years--they also arise in a
variety of other areas including complex analysis, algebraic geometry, and
dynamics. For example, one of the most intriguing spaces in mathematics
is the space which classifies surfaces equipped with a variety of
geometric or algebraic structures (the so-called ``moduli space of Riemann
surfaces''). This space is encoded in the Teichmuller space and the
action of the mapping class group on it. The goal of this project is to
develop a better understanding of certain classes of subgroups of the
mapping class group through the geometry of their action on Teichmuller
space.